Numerically Controlled Manufacturing Laboratory for Undergraduates

Computer-aided design and manufacture are essential components of the educational experience of engineering undergraduates. A CAD/CAM laboratory is created for use by all mechanical and aerospace students in conjunction with a required machine shop junior course and as part of the junior and senior independent work of many student. By locating this laboratory in the central student shop facility, the equipment will also be available to students in other departments, and be under the supervision of a professional machinist charged with undergraduate instruction. This laboratory will build on CAD/CAM experience gained in the sophomore year involving real-time control, actuators and sensors, and robotics. This initial step will establish a laboratory with a three-dimensional CAD/CAM capability, network data transfer between work-stations and the machine controller, and a numerically controlled three-axis milling machine capable of fabricating full-scale components. Other equipment will be acquired as experience is gained.